Conference on New Development of Statistical Analysis in Wildlife, Fisheries, and Ecological Research

As technology has advanced dramatically in recent years, both
statistical research and wildlife, fisheries, and ecological research
have moved into a new era. However, the use of advanced statistical
methods in wildlife, fisheries, and ecological research is in its
infancy. There remain many fundamental statistical and computational
issues. There is a substantial interest among biological
scientists and statisticians in the development of modern statistical
methods with which to answer the relevant scientific questions.
In the recent years, many new statistical methods (such as
spatial-temporal models, multiple testing, stochastic search variable
selection, Bayesian model averaging, Bayesian hierarchical models,
latent variable methods, and Markov chain Monte Carlo methods, to name
a few) are developed to deal with such questions.

The investigators request funding to host a Conference on
New Development of Statistical Analysis in Wildlife, Fisheries,
and Ecological Research at the University of Missouri.
The goal of the conference is to advance the understanding of
statistical problems in wildlife, fisheries, and ecology. In
particular, the goal is to identify future research needs and to
encourage and facilitate collaboration among biological and
statistical scientists and to pursue the interdisciplinary research
programs. The broader impact of this conference will be manifested
through fostering interaction between junior and senior researchers
and promoting communication between researchers from government
and acedamia on research problems, methodology, and theory.